Mathematical Sciences: Asymptotic Problems for Stochastic Processes and PDEs

Diffusion and mutual transmutation of particles of different kinds, and multiplication of particles serve as models in many applied problems. From an analytical point of view these models are described by nonlinear PDE's. This research will investigate the asymptotic behavior of the solutions for some classes of nonlinear PDE's. The nonlinearities include Kolmogorov- Petrovskii-Piskunov type, bistable type, nonlinear boundary and gluing conditions. Systems of PDE's are considered, especially when new effects emerge from the coupling of separated equations. From the probabilistic point of view, this project concerns averaging, large deviations and other limit theorems for some families of random processes corresponding to the differential equations. These random processes are typically diffusion processes with or without branching and immigration, and measure- valued processes. The motion and shape of running waves, running impulses, and other structures in homogeneous or periodic or random media will be studied among other topics. Nonlinear partial differential equations arise in describing some physical, chemical and biological processes which can also be described in terms of random processes. This research will study these types of equations using analytic and probabilistic methods.